Engineering Foundation Conference: Composite Construction II; to be held June 14-19, 1992 in Potosi, Missouri

In 1987, the Engineering Foundation Conference on Composite Construction was held in Henniker, New Hampshire. Composite Construction II, a continuation of the 1987 conference, is organized to fulfill the intent of the 1987 resolution, and to again provide an opportunity for researchers and practitioners form around the world to meet and exchange vital information in this fast developing area of engineering practice. The conference will be limited to approximately 100 participants, with one-half of the participants invited from abroad, and will cover all phases of design, construction and research related to composite steel- concrete structures. Repair and strengthening of existing structures, as well as new construction will be discussed. Composite Construction II will provide an exciting opportunity for an international exchange of ideas that will benefit the structural engineering and construction fields both inside and outside of the U.S.